Conference on Combinatorial Pattern Matching (CPM); Tucson, Arizona; April 29-May 1, 1992

This proposal provides partial support for the conference on "Combinatorial Pattern Matching (CPM)", to be held in Tucson, Arizona April 29- May 1, 1992. Combinatorial Pattern Matching addresses issues of searching and matching of strings and more complicated patterns such as trees, regular expressions, extended expressions, etc. The goal is to derive nontrivial combinatorial properties for such structures and then to exploit these properties in order to achieve superior performances for the corresponding computational problems. This area is expected to grow even further due to the increasing demand for speed and efficiency that comes especially from molecular biology and the Genome project, but also from other diverse areas such as information retrieval (e.g., supporting complicated search queries), pattern recognition (e.g., using strings to represent polygons and string matching to identify them), compilers (e.g., using tree matching), data compression, and program analysis (e.g., program integration efforts).Two quite successful CPM Meetings have been held already. CPM 90 was held in Paris and CPM 91 in London.